Studies of Biofilms Grown on Gas Permeable Membranes

0123394 Semmens The objective of this research is to investigate the behavior of membrane aerated biofilms in carefully designed studies. Existing computer models will be used to select conditions for experimental testing and experimental design. A combination of microscopic techniques, chemical measurements made with microprobes and bio-molecular assays of the biofilms will be used to characterize biofilm behavior under a variety of operating conditions. The data will be used to calibrate and refine the computer model to improve process simulation with the ultimate objective of providing a useful tool for bioreactor design. Membrane aerated biofilm reactors are used in water treatment for the degradation of soluble organics, and nitrogen removal. ***